Mathematical Sciences: NSF-CBMS Regional Conference on Arrangements of Hyperplanes; June 6-10, 1988; Flagstaff, Arizona

The subject of this conference, Arrangements of Hyperplanes, draws on a number of difficult topics in algebra and geometry. Professor Orlik of the University of Wisconsin-Madison will serve as principal lecturer, delivering a series of ten lectures, and several eminent researchers in the field will be invited participants. The lectures will include an historical survey, and discourses on combinatorial, algebraic, and topological methods in the theory of arrangements, properties of arrangements associated with reflection groups, the K(pi,1) problem, and other current research in the area. There will also be several informal problem sessions.